Workshop: Atmospheric chemistry moves indoors

PI: Glenn Morrison
Proposal No: CBET-1028819

Indoor air quality is a function of dynamic processes in which chemical reactions play a key role by consuming primary emissions and generating secondary contaminants, including secondary organic aerosols. While outdoor pollution contributes background levels, the composition of indoor air is strongly determined by indoor sources, including occupant activities such as cooking, smoking or cleaning. In indoor environments, low molecular weight organic compounds and reactive species are found principally in the gas phase, while persistent semivolatile compounds tend to accumulate both in the gas phase and on exposed surfaces, including those of airborne particles and settled dust. To meaningfully alter the composition of indoor air, gas phase reactions must occur at rates that are competitive with air exchange rates. Such constraints do not apply to surface reactions, which are favored by the large surface-to-volume ratios found indoors. Indeed, indoor surfaces may present substrates that favor certain chemical reactions such as base catalyzed hydrolysis. As practices consistent with environmental sustainability and zero-energy buildings are incorporated into building construction and operation, new materials with novel emissions and surfaces will be introduced. Characterizing indoor chemistry, with an eye towards mitigation strategies, becomes even more important in such a setting, since its impact on human exposures will be amplified as a consequence of tighter building envelopes and reduced air exchange rates.

By bringing together the top scholars in the field of indoor chemistry, this symposium will advance the field of indoor air quality through a critical evaluation of present and proposed indoor chemistry research. Aerosols, carcinogens, irritants and odors are all generated or modified by such chemistry. There are a vast number of reactants, reactions and products that can influence the health of building occupants. Thus, research focus is critical to identify processes that most efficiently advance the research field with an eye toward improving public health. Specific workshop objectives are to: Bring together chemists from a variety of domains and disciplines to collaborate and educate each other about the challenges and opportunities that derive from indoor environments and guide NSF in supporting indoor chemistry research. This workshop will result in the first of its kind: a focused collaboration of outdoor and indoor chemists with a resulting plan of action for research on indoor chemistry. By bringing together the top scholars, we will evaluate existing research and generate new ideas. This process will act as a selective filter, refocusing our attention on the most productive path. By advancing indoor air research, they will more rapidly and efficiently identify key causes of indoor exposure to toxic species. In doing so, they can provide tangible strategies and technologies for enhancing public health by improving indoor air quality. Early-career faculty will be supported and will participate in the workshop.